Mathematical Sciences: Geometric, Analytic, and Dynamical Properties of Real Submanifolds and CR Structures

9504452 Webster The proposed research is in the area of several complex variables; more specifically, it deals with real submanifolds of complex manifolds. Two topics are emphasized in the proposal: the investigator introduces a concept of double-valued-reflection in an effort to understand real algebraic curves sitting inside complex algebraic curves (thus the notion of double-valued-reflection generalizes that of conjugation); the embedding problem of abstract Cauchy-Riemann structures is to be pursued further, focusing on finding those properties shared between embeddable and non-embeddable Cauchy-Riemann structures. The study of Cauchy-Riemann structures can be thought of as an attempt to understand certain real surfaces sitting inside complex spaces; emphasizes the interplay between real and complex geometries. The upshot is that to understand a real object better it is often necessary to introduce complex variables.